Dynamic Game-Theoretic Models of Electric Power Markets and their Vulnerability

The issues of market power, generation adequacy, and vulnerability in
network-constrained electric power markets are of increasing concern to
market participants, policy makers, and the general public. Although
price formation and investment are inherently dynamic processes, they
are usually studied using static economic and game theoretic models.
This disregarding of lags, expectations, and adjustment processes may
yield distorted conclusions about the effects of proposed changes to
market structure and designs. To investigate and overcome this
distortion, there is a need for (a) realistic models of dynamic
interactions among strategically behaved electric power market
participants, and (b) the design of efficient computational
methods that can handle the high dimensionality of realistic
power systems.

The proposed research and pedagogy have four objectives:

a) formulation of dynamic game theoretic models of pricing and generation
for transmission-constrained electric power markets, for a variety of
competitive circumstances and market structures

b) development of efficient algorithms for solving the models

c) demonstration and testing of models and algorithms using realistic data

d) development of educational curricula integrating game theory,
economics,
and electric power systems.

The project has several broader impacts, including contributions to
education and public policy. We will develop curricular offerings
in dynamic optimization and differential games for the modeling of
electric power markets. This material will be made available as a
professional tutorial and distributed to the educational community
via the project website. Our models hold the potential of
significantly enhancing the capability of regulatory agencies,
market operators, and stakeholders.